The Role of Somatomedins in Mediating Growth Hormone Feedback

This proposal requests a planning grant to establish techniques and collect preliminary data to investigate the role of hypothalamic and pituitary somatomedins in modulating growth hormone release. The techniques to be established in this laboratory include specific radioimmunoassays, preparation of dispersed adenohypophysial cells and standardization of a perifusion system for measuring hormone release. The hypothesis to be tested is that local somatomedins play a role in the negative feedback regulation of growth hormone on its own secretion. If the preliminary data support the hypothesis, a detailed investigation of the mechanism of in situ somatomedin activity will be undertaken, and a regular grant application will be submitted. The rhythmic pattern of secretion of growth hormone significantly influences this important hormone's effectiveness in peripheral tissues. The pulsatory pattern of secretion is known to be controlled by a combination of hypothalamic releasing and inhibiting peptides and by growth hormone itself which limits its own secretion by a short-loop negative feedback circuit. The mechanism of action of the negative feedback circuit remains to be clarified. Somatomedins are a family of low molecular weight peptides secreted in response to growth hormone which are now generally believed to be involved in mediating the growth promoting effects of GH. There is, however, substantial evidence that GH secretion also may be influenced by somatomedins. The long range goal of this research is to elucidate the mechanism of growth hormone's negative feedback on its own secretion and, in particular, to examine the possible role of somatomedins in this effect.